EAGER: Interfacial disruption of supported lipid bilayers by invading peptides

This EAGER project is "high risk high payoff" in that it involves a radically new approach to investigate the mechanism of peptide-lipid interfacial interactions using a freely oscillating sensor called a Quartz Crystal Microbalance with Dissipation (QCM-D). Life depends on the integrity of biological membranes and their ability to maintain function.

Intellectual Merit. Disrupting bacterial membrane integrity with peptides on purpose is a new strategy to kill toxic bacteria. Alternately, protecting mammalian cell membrane from disruption by peptides or oligomers is a strategy to mitigate Alzheimer’s (and many other amyloid-related) disease(s) (AD). In both cases, very little is known about how the peptides bind to biological membranes (or to membrane mimics called supported lipid bilayers, SLBs) and how they aggregate and penetrate to form pores and/or induce lipid loss. Various models of interaction include the formation peptide adsorbed on a SLB surface, pore formation with and without release of lipids from a SLB. Previously, methods such as interfacial tension (Langmuir-Blodgett (LB)), leakage, spectroscopy (NMR, EPR, CD) and scattering measurements (reflectometry with light, X-rays and neutrons) have been used to analyze protein-lipid interactions. Limitations include the presence of a nonnatural lipid-air interface (LB) and low sensitivity (NMR, EPR). Leakage measurements using fluorescence or electrical current changes are useful for determining the contiguity of the SBLs but do not provide much mechanistic insight. Scattering techniques are complementary to the proposed QCM-D measurements and will be pursued at Oak Ridge National Labs (our proposal to conduct neutron reflectometry in the Fall 2012 was successful) on the same problem described here. This is a complex interfacial binding, disruption and transport challenge, which occurs at the surface of SLBs.

The PIs propose the use of a novel technique, QCM-D, to interrogate this interfacial and transport problem with a variety of peptides and SBLs with the hope of designing more potent peptides and establishing a foundation for inhibiting Aâ disruption.

The PIs plan to measure the interfacial interactions and transport between two different families of amphipathic peptides (anti-microbial, AMPs, and amyloid protein, Aâ) and model membranes (SLBs) in order to discover more potent AMPs and establish a basis to prevent Aâ disruption.
Their experimental plan of attack, materials choice and technique of measurement in combination are novel. No one has developed rules for a widely accepted mechanism of peptideinduced disruption of model cell membranes like SLBs. Our new approach will measure two independent parameters, changes in frequency and dissipation, or changes in mass and rigidity, respectively, and binding kinetics. They have recently made progress and observed disruption of SLBs with both AMPs (picidin 1 & 3) and Aâ fibrils for the first time. At low concentrations, picidin 1 & 3 appear to form porelike structures while at high concentrations, they extract parts of the bilayer and form micelles and large cavities in the SLB. The results from the proposed study are important because they will help establish design principles with greater efficacy to disrupt bacterial membrane integrity and formulate strategies to protect mammalian cell membranes from disruption by peptides or oligomers.

The two specific goals are: Aim I: Investigate the rupture mechanism of bacterial-like SLBs by AMPS, and Aim II: Investigate the disintegration mechanism of mammalian-like SLMs by Aâ1-42 oligomer species.

Broader Impact. The proposed study will provide a fundamental understanding of the interactions of peptides with SLBs. This has broad relevance to inactivating bacterial infections and to mitigating amyloid diseases like Alzheimer’s, Huntington’s, Parkinson’s and over 20 others. As bacteria increase resistance to antibiotics, new and different methods are urgently needed to deal with bacterial infection. Deactivating bacteria with AMPs offers an exciting alterative to antibiotics. Results of this research will benefit society by optimizing AMP design for treatment and for coating hospital walls to deactivate airborn bacteria. The project will promote training and learning by involving undergraduate science and engineering majors through the Rensselaer Undergraduate Research Program and by involving high school seniors through the RPI Questar program. Female and minority students will again be recruited to broaden participation of underrepresented groups, exposing students to modern interfacial science.